Research Experience For Undergraduates (REU): Research Participation in Chemical Engineering

An REU site will establish a twelve-week summer research program for ten undergraduates. Nine faculty who will participate in the program have research interests in biotechnology, electrochemistry, interfacial phenomena, statistical thermodynamics, polymer characterization and materials science. The program will include a tutorial series on statistics, computer programming and experimental methods for analysis. A seminar series will involve the resources in other departments on campus and at Duke and UNC, as well as researchers from local industrial and public laboratories, including EPA, Ciba-Geigy and Sumitomo Electric. Collaborative possibilities in cross- disciplinary research open to chemical engineers and research opportunities which exist outside the university will be described. The program will conclude with a day of public seminars, where the students will discuss their research and accomplishments.